Recrystallization of Two-Phase Alloys and the Experimental Determination of Particle Pinning Forces

This research examines the recrystallization kinetics in metal alloys that have second phase particles. Some alloys containing fine particles can display behavior changing from suppression to retardation to acceleration of recrystallization with increasing plastic strain. This study centers on the pinning forces that can occur from particles during primary recrystallization. The experimental results will be compared to a model formulated to explain the recrystallization kinetics. Calorimetry and transmission electron microscopy are employed to follow the underlying mechanisms associated with the recrystallization process. The research contributes to an understanding of recrystallization processes in metal alloys and should result in a quantitative model of the effect of small, hard particles on recrystallization kinetics. This information will provide greater control of alloy microstructure during processing.